Strengthening of Concrete Columns with Fiber Composites

This project will investigate the possible use of a high strength synthetic fiber (Kevlar) to reinforce bridge columns externally by wrapping the fiber around the column while being tensioned. This technique will prestress the column to provide additional ductility, stiffness, and strength.